Doctoral Dissertation Research in Sociology

This study involves an historical-comparative analysis of Hindu- Muslim enmity in four villages in rural West Bengal, India and Bangladesh. The objective is to gain an understanding of the processes by which people think about disputes, pursue conflict, and choose their enemies. With this kind of information, it may be possible to negotiate resolution of conflicts that occur in communally based ethnic, nationalist, and language-based conflicts.